RUI: Instrumentation for Studies of the Effect of Quantum Interference on Optical Shifts

This proposal is for equipment only for experiments investigating interference effects in multiphoton ionization and for (or six) wave mixing in rare gases. It is relevant to theories of self-induced transparency and to understanding the range of adiabatic theory in short pulse excitation.